Workshop on Theory and Applications of Markov Random Fields for Signal and Image Processing and Computer Vision

There has been a resurgence of interest in Markov Random Field models for analysis of digital signals, image structures, and neural-network learning and pattern matching. This workshop will bring together active researchers to discuss emerging themes and limitations. Proceedings of the workshop will be widely disseminated in the relevant research communities.